IUC: Band Structure, Transport and optical properties of Hg-Te-CdTe Superlattices

This research is on the basic behavior of HgTe-CdTe. The HgTe-CdTe superlattice is a new microstructure which has recently been made by molecular beam epitaxy (MBE). Initial theory and experiment indicate that it has unusual fundamental properties such as a semiconductor-to-semimetal transition and two-dimensional behavior. The structure is also expected to be useful as an infrared detector, with advantages over the widely used alloy HgCdTe. Infrared (5-400 cm) spectroscopy and magnetospectroscopy will be used to probe fundamental band structure, transport, and optical properties. A metalorganic chemical vapor deposition (MOCVD) supperlattice growth process will be initiated and structural, middle infrared, and dc measurements will be carried out to characterize HgTe-CdTe as a detector material.